Crustal Reflection Profiling Across the Oldest Archean Crust and Crustal Sutures, West Greenland: Processing and Interpretation

The Archean rock of West Greenland represent some of the best-exposed, best-studied, oldest rocks known and thus constitute a prime target for crustal reflection studies. Interpretation of crustal reflection data has attained its greatest success where "deep" seismic data was correlated with surface geology. The Archean of West Greenland is thus an excellent geophysical target because of its exposure and age that allows the study of early crustal processes. This award supports the interpretation of a recently completed gravity study in the area and a combined gravity and magnetic investigation. The research is a cooperative project between Norwegian, Danish, and U.S. scientists. Problems being addressed by this research include: 1) continuation of the deformation zone to depth, 2) crustal shortening and mode of deformation, 3) role of volatiles in the deep crust, 4) change in Moho depth, 5) Archean crustal development, and 6) nature of deep crust under granulities.